SBIR Phase I: Contact lens for assisting color vision deficiency

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is a novel biocompatible dye integrated into contact lenses for improving color recognition in people with various forms of color blindness. The technology aims to improve color recognition in patients with color vision deficiency (CVD), due to either hereditary (11.3 million anomalous trichromats) or acquired (33 million retinopathies and maculopathy affecting color vision) causes. Common reasons include macular degeneration, Type II diabetes retinopathy, and glaucoma. Classroom information is also nearly 80% color-coded, and the technology poses a more equitable learning environment for color vision deficient students who wear contact lenses and in a less externally obvious manner. The system thus poses the potential impact of improving learning, task performance, and quality of life as demonstrated through spectrally identical external eyewear studies for contact lens wearers. The total addressable domestic market exceeds 5 million patients with over 1 million patients suffering from hereditary causes and 4 million from acquired color deficiencies, resulting in an annual market of up to $326 million.

This Small Business Innovation Research Phase I project aims to embed narrow-band hydrophobic dyes into polyvinyl alcohol (PVA), a primary hydrophilic contact lens (CL) hydrogel, to create a contact lens that offers color vision deficiency assistance. Narrow-band absorber dyes provide spectral shaping, modifying light reaching the eye. The technical hurdles to be addressed is developing a fabrication method which ensures the dyes and PVA are embedded into a stable format such that they do not leach out during prolonged submersion and wear. A novel chemical process that combines dyes into a common solvent, when combined with the PVA-water solution will be integrated into a contact lens such that it permeates and impermeates the porous substrate without precipitating. Upon curing and cross-linking, this embeds less than a microgram of hydrophobic narrow-band dyes to create a thin and stable lens layer. The effects will quantified using optical spectroscopy and mass spectrometry to provide a basis for a human grade contact lens.